"IUCRC Phase I: University of Maryland, College Park: Center for Medical Innovations in Extended Reality (MIXR)"

The Center for Medical Innovation in Extended Reality (MIXR) integrates computer science and engineering with medical and clinical sciences to develop and establish scientific foundations for designing and assessing medical extended reality (XR) applications. Working with industry partners to broaden the safe deployment of XR, the Center focuses on new technologies and regulatory pathways to improve healthcare equity and access, patient management, and medical outcomes across all areas of clinical practice.

MIXR has identified driving applications in clinical practice, medical education and training, and regulatory standards. The University of Maryland, College Park leads the Center with unique capabilities in: medical scenario acquisition (a state-of-the-art multi-camera array and a software pipeline for acquiring and fusing visual data), predictive modeling (AI-assisted methods to identify anomalies in medical data), immersive telepresence (high-resolution, high-frame-rate dynamic light field rendering to facilitate medical image transmission using low-latency, high-precision representations), human factors (immersive presence interfaces), and imaging and displays (bench-testing methods evaluating XR modalities in medical environments).

XR device evaluation lags significantly behind technological innovation, increasing the risk of ineffective or unsafe applications and delaying clinical implementation. This effort’s broader impact will be addressing open research questions for the evaluation of medical XR devices. Supporting NSF’s mission, this will assure public safety around these technologies and improve health care outcomes. In collaboration with the U.S. Food and Drug Administration, project outcomes will provide the scientific foundation supporting regulatory requirements on and decisions regarding medical XR devices. Further, MIXR’s multi-faceted strategic approach for creating educational opportunities for underrepresented students focuses on access, community, and innovation.

Data, software, findings, and publications resulting from this project will be archived across the sites, but with a central server at http://mixr.umd.edu to facilitate ease of discovery. Research and archival staff will review the data collected during this project before release to the public. It shall be publicly available for at least three years after the project.